Development of an Accelerator Mass Spectrometry Facility forTrace Impurity Characterization of Electronic Materials

There is a present need to characterize trace elements in electronic materials at impurity levels of sub parts-per-billion. This award is for the development of such an instrument for stable trace element analysis of electronic materials using Accelerator Mass Spectrometry (AMS). While AMS has been applied to radioisotope determinations with extremely high sensitivities, existing AMS instruments are not designed for stable element analysis and can not adequately perform these measurements without extensive modifications. We propose an instrument with an ultra-low sample-contamination UHV sputter ion source which injects mass-analyzed negative secondary ions from the sample into a 3 MV tandem accelerator. During tandem acceleration, electrons are stripped from the ions; for charge states greater than 2+, only atomic ions survive. Momentum/charge and energy/charge discrimination, followed by velocity and total energy detection, provide unambiguous elemental identification with a sensitivity of 1 part-per-trillion. The proposed instrument will provide a super-sensitive trace analysis technique which is applicable to a large variety of samples.